The Monge-Kantorovich in Kinetic Theory

PI: Wilfrid Gangbo, Georgia Institute of Technology
DMS-0200267

ABSTRACT

The proposal uses the Monge-Kantorovich theory to study problems that originate
in the kinetic theory of gases, and meteorology. The mass transportation problem
was first introduced by G. Monge in 1781 and consists into finding the optimal
way for moving a pile of dirt with a prescribed distribution to holes with prescribed distributions. Optimality is measured against a prescribed cost function. The original Monge problem deals only with measures that are absolutely continuous with respect to Lebesgue measures, and so, it makes sense to talk about distribution functions. We show that one can interprete the
kinetic Fokker-Planck equations (KFPE) as the gradient flux of the entropy with
respect to manifolds that vary in time. These manifolds are sets of probability
densities for which the first moments and the standart deviation are prescribed.
That restriction on the probability densities are needed to ensure conservation
of total energy for the solutions constructed. This conservation law is a big
deal in kinetic theory for inhomogeneous equations. Our investigations, in a
special case, the so-called Maxwellian model of (KFPE), show that the
Monge-Kantorovich distance is an appropriate tool for studing these problems.
The cost function used here is the square of the euclidien distance. We intend
to investigate the implication of our results in the study of hydrodynamic
equations. To deal with measures such as combination of dirac masses, in 1945,
Kantorovich generalized the Monge problem to measures that may have singular
parts. This generalization by Kantorovich turned out to find applications in
various fields, including shape recognition, where one wants to compare how two
curves living in the space look alike. In that case, clearly, the curves can be
represented by one-dimensional measures and so, have singular parts. Other
applications that are relevant to this proposal are the semigeostrophic systems,
introduced by Hoskins in 1975. The semigeostrophic systems are approxamations of
the celebrated Euler equations of incompressible fluids in a system, rotating
around a fix axis. These system where introduced in meteorology as models which
develop fronts. There is a complete lack of analytical results on these models,
and so, there is a need to develop a theory that would confirm or infirm
previsions made by meteorologists. We show that these systems are infinite
dimensional hamiltonian systems with respect to the Monge-Kantorovich distance,
whose cost function is the square of the euclidien distance. In this proposal,
we intend to extend results obtained in previous works with collaborators or
graduate students.

The Monge-Kantorovich theory became central in many fields of mathematics
including meteorology, kinetic theory, and shape recognition. Over the past few
years, it has been noticed that a class of problems in various fields, including
the study of evolution of gases, can be realized by minimizing a free energy
functional under the penalty that one should not pay to much to change the state
of the system. Based on preliminary investigations, we believe that in this
proposal, we can use the Monge-Kantorovich theory to solved problems that are
considered important in the kinetic theory of gases. We start our study with the
Fokker-Planck equations, a class of equations similar to the Boltzmann
equations, that are fundamental in kinetic theory.